Engineering Research Equipment: High-Performancs Data Acquisition and Control System for Dynamical and Coherent Structures Approaches to Turbulence

ABSTRACT CTS-9411569 University of Houston P.I.: F. Hussain This equipment will support the purchase of a modern data acquisition and control system for the Aerodynamics and Turbulence Laboratory. This unit will be used for real-time experiment control, multi-channel data acquisition, and data analysis for turbulence research. Since both dynamical and structrual approaches will be used, acquisition and analysis of large amount of low-noise, high-resolution multi-channel data are necessary. Research in the upgrade laboratory will likely make a significant contribution to the field of turbulence.